U.S.-Brazil Workshop on Techno-Regions: Science, Technology & Regional Development-Past, Present and Future Challenges, May 7-10, 1998, Itaipava, Brazil

9724806 Kargon This award provides support for a workshop on "Techno regions: Science, Technology and Regional Development Past, Present and Future" which is being organized by Dr. Robert Kargon of Johns Hopkins University and Dr. Alberto Carvalho da Silva of the University of Sao Paulo. This workshop will gather together U.S. and Brazilian experts from the areas of science and technology studies, economics, political science, policy analysis and geography to discuss the inter-sectoral relations between industry, government and universities in North and South America. By doing this, they hope to increase our understanding of the origins, structure and function of these relationships through the comparison of historical and current developments in the Americas. They will analyze in particular, the university-industry relations in "techno regions" such as Silicon Valley, Tsukuba Science City in Japan and Sophia-Antipolis in France and in the economy generally. With this workshop, the participants will study policy issues surrounding the relationship of research and development to industrial innovation and growth, knowledge transfer between government, university and industry, and the role of regional factors in science policy. By doing this, they hope to provide guidance on how to revitalize older techno-regions in the U.S. and Brazil and to engage with other regions such as Japan, India, Korea, Thailand and Singapore, starting cooperation among researchers in the U.S. and Brazil. ***